Computer Interface Physiology Equipment

Michael A. Vitale DUE 9551862 Daytona Beach Cmty Col FY1995 $ 17,755 Daytona Beach, FL 321142817 ILI - Instrumentation Project: Life Sciences Title: Computerizing a Human Anatomy and Physiology Laboratory The objective of this project is to give students experience with computer equipment and to increase their familiarity with physiology. A Human Anatomy and Physiology laboratory is being equipped with computer-interfaced data acquisition stations to collect data from traditional physiology experiments such as muscle contractions, nerve action potentials and respiratory movements. Using appropriate software, data can be stored, analyzed, manipulated and retrieved. Also, the simulation capabilities of the computer are being used for those experiments not easily completed in a three-hour laboratory.